Rapid Mechanochemical Screening of Biologically Ligands Using Submicrogram Amounts of Proteins

We have developed a mechanochemical method of assay (MCA) to rapidly test the binding ability of proteins or other macromolecules for substances with low (no more than 1 kD) mol. weight. A characteristic feature of this method consists in monitoring of ligand binding by measuring changes in the isometric tension or elastic modulus of cross-linked films of biomacromolecules which result from changes in the conformation and/or mechanical properties of the macromolecules. The method has been evaluated on samples of 17 different proteins, and found to be a general and reliable probe of specific binding, capable of determining the scale of ligand-induced conformational changes, quantitative ligand affinities, and distinguishing specific from nonspecific binding. MCA effectively complements other methods of protein bioassays, which can fail to detect binding of small ligands, especially in cases where the binding site does not contain any reporter group(s) or when there are no known ligands binding the protein. A laboratory version of the mechanochemical device uses samples containing only 100 ng of protein. Thus, in principle, even proteins that are available in small quantities, such as receptors, can be tested by this method. However, much larger amounts of protein (more than 0.3-0.5 mg) are presently needed to prepare samples from protein films. The present method of sample preparation also requires micromanipulations with special instruments. These two drawbacks present a barrier to wide applicability of this method. For this reason, the main objective of this project consists in improving the technology of sample preparation from microgram amounts of proteins without micromanipulation. The electrospray (ES) technology which has been developed to introduce protein ions into mass spectrometers will be adapted to fabricating protein microsamples. The ES technology project has the following objectives: (i) design and construction of a device that will allow ES of protein solutions under controlled conditions of humidity, temperature, composition of atmosphere and other parameters that affect the quality of deposited samples, (ii) study of ES of protein solutions to identify ES conditions that retain native properties of protein molecules (effects of humidity, path of flight, temperature, pH, protecting agents, etc.), (iii) investigation of ES conditions ( optimal configuration of electrostatic field, distance to substrate, form of masks, etc.) to precisely deposit a protein sample onto a substrate, (iv) studies on the dependence of internal structure of protein films upon ES regimes, to make the MCA applicable to ligands with mol. wt. larger, than 1 kD and (v) elaboration of special substrates and procedures for easy detachment of protein sample from an intermediate holder and its transfer to the measuring device without micromanipulation. The improved MCA should have broad applications in biochemistry, for investigating the specificity of newly discovered proteins or proteins available in small quantities, since a single sample, containing only 100 ng of protein can be used repeatedly in tests with different ligands, provided the binding is reversible. It should also become possible to use the MCA on receptor proteins. The quantity of protein available from analytical electrophoresis will be enough to allow screening of its possible specific inhibitors, allosteric effectors etc. Since the MCA and the device based on it makes it possible to detect specific binding and evaluate the concentration of a bound ligand, they can be used also as universal biosensors with replaceable sensitive elements and as detectors allowing easy recognition of analytes in chromatography.